NSF Young Investigator

9457305 Betti This project is a NSF Young Investigator Award. The subject of the research is focused on bridge engineering analysis and design features, including retrofitting concepts. Research will be directed towards analysis of vibration control systems for long- span bridges, dynamic soil-structure, interaction effects, non- destructive global testing, and evaluation. Techniques for bridge damage detection and the analysis of corrosion processes. ***